Effect of Windthrow Disturbance on Decomposition-Weathering Feedback and Watershed Nutrient Dynamics

9632122 Bormann Effect of Windthrow Disturbance on Decomposition-Weathering Feedback and Watershed Nutrient Dynamics The ecology of disturbance is increasingly considered an important foundation for new natural-resource management strategies to provide for human uses while seeking to maintain biodiversity and key ecosystem processes. A disturbance common to most forests is the uprooting of trees (windthrow). This research will explore whether mixing of organic and mineral soil horizons by windthrow is an process that influences long-term forest productivity. The mixing of organic and mineral soils may speed the breakdown (weathering) of rock particles and may release nutrients (base elements, phosphorus, and micronutrients) for plant uptake. Extensive windthrow over large areas may also affect weathering in entire watersheds--as measured by the flux of bicarbonate, cations, and organic matter in stream water--by increasing water flow through mineral soils. Changes in stream water chemistry may have indirect, but significant, effects on the productivity of anadromous fish. Productive, largely pristine, forests of Southeast Alaska provide the setting for this research.